Development of a REU Site in Chemistry at the University of Iowa

The University of Iowa is being supported to establish a Research Experiences for Undergraduates (REU) SITE. The purpose of this SITE is to provide meaningful hands-on research opportunities in contemporary chemistry for outstanding undergraduate students under supervision of experienced research chemists. The program will support 9 students for the summer of 1987, of which almost half will come from other institutions. The Research activities will include: o Synthesis and Reactivity of Organodimetallics o Automated Analysis of Data from Passive Infrared Sensors o Synthesis and Spectroscopy Novel Metal-porphyrin o Novel Biologically Active Heterocyclic Systems